Parallel Architectures for Speech Recognition: Putting It All Together

This support is for research on advanced speech recognition algorithms architectures, and experimentation in the Laboratory for Engineering Man/Machine Systems (LEMS) at Brown University. As a basis for the facility of research, the researchers use Armstrong, an 80-node loosely coupled distributed multiprocessor system, and a hardware/software testbed composed of a linear array of microphones for speech acquisition. Problems addressed include the investigation of computationally efficient algorithms for time-dependent modeling of speech analysis, study on new algorithms for real-time early-decision recognition of connected speech, and research on fine-time resolution of hidden Markov and neural-network representations of highly time-varying phonic events.